Conference: The Hadley Circulation: Present, Past and Future; Honolulu, Hawaii; November 11-14, 2002

This award will provide partial support of an international conference at the International Pacific Research Center, Honolulu, Hawaii on November 11-14, 2002 entitled "The Hadley Circulation: Past, Present, and Future."

The intent of the conference is to bring together an international group of climatologists, modelers, and paleoclimatologists to share the latest ideas on Hadley Circulation, paleoclimatic records that describe past dynamics of the Hadley Circulation, and ideas as to potential future changes in Hadley Circulation as a result of increasing greenhouse gas concentrations. The participants will include seasoned researchers, new investigators, and students. A conference volume synthesizing and summarizing the conference proceedings and findings will be published.